Support for the Second Annual Computation and Neural SystemsMeeting, CNS*93 , to be held July 31 - August 6, 1993, Washington, DC

This award will support the Second Annual Computational and Neural Systems Meeting, to be held in Washington, DC, July 31 through August 6, 1993. Computational neuroscience is a new and growing area in the biological sciences. The conference will bring together people from various fields: biology, computer science, mathematics, engineering, and cognition. The award will support the involvement of graduate students, postdoctoral fellows and junior faculty.